Engineering Research Equipment: Gas Chromatograph/ Mass Spectrometer System

An integrated gas chromatography/mass spectrometer system is being acquired. This will be used to assist research in tribology, kinetics, and catalysis. Some specific areas under study include lubricant degradation, oxidstion of hazardous wastes in supercritical water, reactions on bimetallic catalysts, and reactions in microgravity. //